Introduction to Engineering and Computers

Forty students who have completed the junior year in secondary schools having limited facilities or instruction, primarily from the Southern Appalachian region, will be selected to participate in an enrichment program centered on engineering. The program will consist of lectures in the Introduction to Engineering series, engineering design, energy and environmental engineering. The participants will also develop a proficiency in Fortran IV programming on the main University computer system and on microcomputers. They will work in design teams to develop an engineering design of a device or system. Field trips will be taken to the Arnold Engineering Development Center (U.S. Air Force), to a TVA power plant, and to a local industry.